Talking CS: Using Language to Broaden Participation and Improve Conceptual Understanding

This project will create a series of language routines that can be used with any middle school programming curriculum and study their impact on teacher practice and student experience. Rich classroom discussion, or discourse, enhances students' thinking and helps students build a learning community. The project aims to study the potential of bringing structured routines for classroom discourse and other supports for academic language, or language routines, to make computer science more accessible for all students and increase students’ classroom participation and their engagement and motivation to learn computer science.

Though rich classroom discourse and other supports for academic language have been shown to improve outcomes in science and mathematics, less is known about how they can be effectively integrated in computer science classes or how they can be used to promote the participation, engagement, and learning of students. Talking computer science is adapting a series of classroom language routines, originally designed for mathematics and data science, for teaching middle school algorithms and programming computer science content standards. The team is also establishing a professional learning community of middle school computer science teachers to share knowledge and best practices for using the discourse routines in their classrooms. The research studies will help the field better understand: a) how to structure computer science-specific language routines and integrate them within an existing middle school computer science curriculum; b) what supports are needed so middle school computer science teachers can implement the routines effectively; and c) how the inclusion of classroom discourse affects students' motivation, engagement, feelings of self-efficacy, and conceptual understanding of core computer science content. This project is funded through the Computer Science for All: Research and RPPs program.